Wave Spectra and Wave-Wave Interactions in the Auroral Acceleration Region

In order to understand the interaction of the particles from the magnetosphere of the earth in the terrestrial atmosphere both observations and theoretical studies are important. The aurora that occurs primarily at the poles is a manifestation of that interaction and theoretical considerations on the mechanisms that produce the aurora are required. This project deals with various wave-wave interactions that affect the particle energy and distribution in the evening auroral acceleration region. Numerical modeling and analytic calculations will be used to investigate the energy transfer between wave modes by coherent and incoherent three-wave decay. The results of this study will increase the understanding of plasma species temperatures, drifts and densities related to the excitation of those waves in the auroral region. //